REU Site: Biology and Biotechnology Undergraduate Research Experience (BITURE)

This REU Site award to the University of North Carolina Charlotte, located in Charlotte,
NC, will support the training of 10 students in a 10-week program during the summers of
2015-2017. The REU program is open to all undergraduate students who are citizens,
nationals or permanent residents of the United States. Students trained in the program
will gain skills in lab research, develop their critical thinking and problem-solving skills,
understand the process of science, and be able to communicate their research results to
their peers and the general public. Students will have an opportunity to present their
results at a national conference. The REU program provides an experience to students
that is typically not available to them at their home institutions. Students from schools
with limited opportunities for research and from underrepresented groups are encouraged
to apply.

This REU Site program will focus on research in biology and biotechnology in a
traditional research experience while conveying how basic biotechnology research leads
to business creation and industrial development. Example projects include bioinformatics
and whole genome analyses to understand drought resistance of potato crops, generation
and study of transgenic soybeans for agricultural use, study of microbial populations for
biofuel development or water treatment, use of nanoparticles in bioavailability or
environmental impact studies. During the 10-week program, students will participate in
activities including workshops on Research Ethics, Applying to Graduate School, Career
Opportunities, Biotechnology Innovation and Start-Ups, and a program at NC Research
Campus and David Murdock Research Institute featuring research and employment
opportunities. At the end of the program, students will present their research in a poster
and/or oral presentation at the UNC Charlotte Summer Research Symposium.

A common web-based assessment tool used by all REU programs funded by the Division
of Biological Infrastructure (Directorate for Biological Sciences) will be used to
determine the effectiveness of the training program. Students are required to be tracked
after the program and must respond to an automatic email sent via the NSF reporting
system. More information is available by contacting the PI (Dr. Christine Richardson at
[email]) or co-PI (Dr. Sharon Bullock at [email]).